Determination of Cellular Properties Based on the Distribution of Cell Velocities Induced by External Fields

9731059 Chalmers The objective of this project is to develop an analytical device in which the degree to which a cell is immunologically labeled is quantified on a cell-by-cell basis. The fundamental basis of this device is the ability to quantify the position and velocity of a large number of immunomagnetically labeled cells in a well characterized magnetic field gradient. This project is to have both fundamental and applied applications for the quantification of the degree to which a cell is immunologically labeled. This is to assist in the optimization of immunomagnetic labels and separation devices. ***